Fifth International Conference on Hot Carriers in Semiconductors (Boston, Massachusetts, 7/20-24/87)

The Conference follows the four International conferences held earlier (Modena 1973, Denton 1977, Montpellier 1981 and Innsbruck 1985). It will focus on the key experimental and theoretical physics as well as solid state electronics issues relevant to non-equilibrium, hot carrier transport in semiconductors. It will encompass such topics as ballistic transport, overshoot phenomena, quantum transport in both electric and magnetic fields, novel differential resistance device behavior, ultra-small, ultra-fast semiconductor devices and general solid-state dynamical considerations relevant to hot carrier physics. This conference is intended to provide a forum for intensive discussions on key experimental and theoretical aspects of non- equilibrium and hot carrier phenomena in semiconductors and semiconductor devices.